CSR---EHS: Static and Dynamic Analysis of Embedded Systems

Recently there has been great progress in improving software
reliability through automatic techniques for detecting software errors
(i.e., bugs). This project builds on this recent work to address
problems of reliability in embedded software. While in some respects
embedded software is similar to all other complex software systems
(e.g., many embedded software systems build on standard libraries) in
other respects embedded software is different. Some of the
characteristic features of embedded software systems are: ubiquitous
use of concurrency and distribution, the central role of continuous
control laws to model and predict behavior in the physical world,
real-time requirements, and often very limited computational
resources. The project expects to make significant advances by
focusing specifically on error detection and verification for just such
aspects of embedded software. The methodology is to study an
existing, ongoing embedded software project, which initially is the
Stanford Autonomous Car. Through experimentation and interaction with
the team building the Autonomous Car, partial specifications are being
developed that can be checked by the tools developed in the project.

Modern software systems are incredibly complex and prone to failure in
very complex ways. Embedded software systems increasingly control the
physical infrastructure of society (hospitals, power plants, dams, and
so on) and thus the cost of software failures becomes greater with the
passage of time. Automatic software analysis is one of the most
promising avenues to improving software quality; the focus of this
project is to apply these ideas to the unique aspects of embedded
software. If successful, this project will make significant advances
in the ability to analyze and predict the behavior of embedded software
systems.